Acquisition of an F.T.I.R. Spectrometer

This award will provide for half the funds needed for the acquisition of a Fourier Transform Infrared Spectrometer. The additional funding required for this acquisition has been committed by the University of California at Santa Cruz. It is anticipated that studies utilizing this instrument will provide fundamental constraints on a number of geochemical and geophysical processes. These include, but are not limited to 1) examination of the structural changes taking place in silicate melts at high pressures, and thus potentially on differentiation processes occurring in the early Earth; 2) characterizing the speciation of volatiles (primarily water and carbon dioxide) within both mixed volatile-fluid phases at moderate pressures, and in volatile- bearing silicate assemblages, with relevance both for the solution properties of fluids at high pressure and temperature, and for possible retention of volatiles in the deep Earth; 3) investigating the response of bonding properties of minerals to high pressures, with implications both for the thermochemical properties of minerals under extreme conditions, and for the mechanisms by which minerals undergo metastable phase transitions; and 4) a novel method for potentially characterizing the thermal conductivity of opaque materials at high pressures.